Thermochemistry of Minerals

Navrotsky
0229332

This proposal funds the Thermochemistry Facility at UC Davis. This facility has unique capabilities to measure enthalpies of formation in mineralogical systems. This project emphasizes the thermochemistry of high-pressure perovskite phases relevant to the Earth's lower mantle, of other lower pressure hydrous phases, and of rare earth - bearing geochemical systems. In addition, it will provide the infrastructure support to allow visitors to perform calorimetric measurements relevant to a variety of mineralogical and geochemical problems.